Conference on Topological Defects and the Non-Equilibrium Dynamics of Symmetry-Breaking Phase Transitions, February 16-26, 1999; Les Houches, France

9975388
Williams

This is a travel grant to allow scientists to attend the Conference and Winter School: "Topological Defects and Non-Equilibrium Dynamics of Symmetry-Breaking Phase Transitions". The Conference will be held in Les Houches, France, February 16-26. This is an unusual conference which brings together cosmologists and condensed matter physicists. The common ground between these normally distinct disciplines is research of the supported participants involving topological defects in superfluid Helium-3 and Helium-4. The theoretical description and experimental study of these helium defects has been found to have applications in cosmology.
%%%
This is a travel grant to allow scientists to attend the Conference and Winter School: "Topological Defects and Non-Equilibrim Dynamics of Symmetry-Breaking Phase Transitions". The Conference will be held in Les Houches, France, February 16-26. This is an unusual conference which brings together cosmologists and condensed matter physicists to discuss recent developments which connect these normally divergent disciplines.
***